REG: Pollutant Emission Analyzer

Abstract CTS-9500381 Chehroudi This proposal is for funds to purchase an Engine Emission Analyzer from Rosemount Analytical Inc. The equipment will be used for several research programs for example one is aimed at the reduction of NOx and other emissions without the fuel penalty and a second is concerned with the use of "Natural Gas" as a fuel in two-stroke engines. In addition the requested instrumentation will be useful in several courses in applied combustion and internal combustion engines.